CRLT: Technology Transfer and Development of Transferrable Learning Technology: A Center for Collaborative Research on Learning Technologies Based at Northwestern University

9616434 Schank, Roger Gomez, Louis Northwestern University CISE/EHR/ENG/MPS Collaborative Research on Learning Technologies Program: Technology Transfer and Development of Transferrable Learning Technology: A Center for Collaborative Research on Learning Technologies Based at Northwestern University Northwestern University has been awarded funding in the amount of $50,000 for 12 months to plan an NSF Center for Collaborative Research on Learning Technologies with the theme of "Technology Transfer and the Development of Transferable Technology." The mission of the Center will be two-fold. The infrastructure mission of the Center will be to transfer learning technologies developed at Northwestern to teachers, and content learning for applications to science, mathematics, and technology education in schools, homes, and workplaces. Its research mission, to be carried out collaboratively with these teachers and content experts, will be to develop and investigate tools and technologies for the design and implementation of education software that truly are transferable - i.e., tools and technologies that teachers and content experts can really use, even if they are not expert programmers, to develop new, high quality educational software applications that meet the needs of their students in science, mathematics and technology.